LMC: A System for the Specification and Evaluation of Logic-Based Model Checking

The objective of this project is to deploy the latest advances in concurrency research and in logic programming systems to build a software environment called LMC for system specification and verification. LMC's main function is model checking: determining whether a software system possesses a particular formally specified property. LMC is built from two independently developed systems, each of significant interest in its own domain: the Concurrency Factory verification toolkit (developed jointly by Stony Brook and NC State), and the XSB tabled logic programming system (developed by Stony Brook). The anticipated benefits of this research include the following: a model checker in XSB is specified at the level of semantic equations, meaning a system for a specific specification language and logic can be coded in several hundred lines of XSB code rather than in tens of thousands of lines of C++ code; the programmability of XSB allows for direct encoding of important model checking optimizations; in XSB it is possible to interleave arbitrarily model checking computational steps with deduction steps without penalizing the performance of the former. These features are expected to make LMC a practical tool for formally assuring the correctness of critical software systems such as network protocols.